RUI: Collaborative Research: What's their impact?: Quantification of medusan feeding mechanics as a tool for predicting medusan predation

In many areas around the world jellyfish population abundances are increasing and, at times, result in destructive blooms. Their rapid growth and high feeding rates make them important predators in marine ecosystems and their effects on ecosystems and human activities have increasingly raised concerns. Unfortunately, scientists do not currently understand the factors that determine which types of prey jellyfish eat and how much prey they eat. This presents a knowledge gap of increasing importance as jellyfish undergo inexplicable population fluctuations and invade new environments. In this project the investigators will develop a robust understanding of the factors that determine who and how much jellyfish consume based on their morphology, behavior and size. This fundamental understanding of their feeding process will enable researchers to use simple jellyfish characteristics to predict the ecological impact of different types of jellyfish. This project will include the studying of a greatly under-studied group, rhizostome jellyfish, which represents many of the recorded bloom events and geographic expansions. Further, these techniques are sufficiently robust to have broader use in the study of physical-biological interactions for other jellyfish species and other pelagic organisms. The principal investigators participating in this collaboration are from primarily undergraduate institutions. Student participation in the project will involve several undergraduates during each year of the proposal. Through summer research at the Marine Biology Laboratory, undergraduate students will become exposed to a wide range of research and become immersed in a post-graduate environment that can strongly influence their perception of the scientific profession. The trophic impacts of scyphomedusae are subjects of broad international interest and results of our research will be exchanged with a wide range of colleagues, contributing to international scientific dialogue. In addition, we will use our contacts with media (e.g. PBS Shape of Life series, Fantastic Jellies exhibit at the New England Aquarium) involved in scientific education of the general public to communicate our new findings.

The goal of this project is to quantify the variables that control the post-encounter capture process in order to be able to predict the prey selection patterns and clearance rate potential of different rowing medusae based upon their morphological characteristics and size. To achieve this goal, the PIs will use laboratory and in situ videography and optics techniques to quantify the outcome of individual interactions with prey in the lab and in the field. Step-by-step quantification of the post-encounter capture process will enable them to quantify capture efficiencies of different prey types and determine which stages of the process were most influential in determining the outcome of the encounter. The investigators will use these quantitative observations to relate medusan morphology and nematocyst properties to capture efficiencies. This will allow them to predict prey selection patterns. These predictions will be combined with flow-based encounter models to predict clearance rate potential and prey selection of different medusan species under different prey conditions. Finally, the investigators will validate our predictions using laboratory bottle incubation studies to quantify prey selection and clearance rates of medusae fed different prey assemblages. When achieved, this study will provide marine ecologists with the critical "missing links" to be able to model and predict the ecological impact of medusae populations in all environments.